Collaborative Research: Advancing Observation of Coastal Winds with High Frequency Radar

The overall objective of this project is to produce a new tool for accurate and reliable wind observations from coastal high-frequency (HF) radar at the same resolutions as currents and demonstrate their validity via comparisons with in-situ observations. Considering the kilometer scale variations in wind and currents will lead to advancing our knowledge of the coupled ocean-atmosphere system. High frequency radar-based surface wind observations will fill a critical gap in our capability to observe and understand coastal ocean dynamics and ocean-atmosphere interactions.

In HF frequency radar-based efforts, signal attenuation, or path loss, is largely related to the wind field itself, which represents a key difference from satellite-based wind extractions. To resolve some systematic issues of previous HF radar-based methods, PIs propose to finalize a generalized method for wind extraction process using a ‘tomographic’ approach. This new approach will be demonstrated through the production and analysis of two long records of coastal ocean winds and currents in two geographically distinct coastal regions.